Attracting students to Computer Science, Mathematics and Physics at USD

The University of San Diego (USD) is implementing the "Attracting students to Computer Science, Mathematics and Physics at USD" by recruiting two cohorts of nine students each who demonstrate financial need and academic excellence. During the first semester at USD, the S-STEM scholars are taking an innovative interdisciplinary preceptorial course. This course is focusing on physics topics from mathematical modeling and computational science perspectives and is illustrating the interconnections between these disciplines. Other support structures for the scholars include close mentoring by the project faculty throughout the scholar's undergraduate career, living-learning communities, the opportunity to participate in undergraduate research or internships, and career development workshops to assist in pursuing graduate school or industrial careers. In addition, ongoing assessment during the life of the project allows for mid-project corrections that is enhancing the experiences of the scholars. By developing connections with area high schools, a pipeline is being established that allows the project to target underrepresented students (minorities, students from disadvantaged backgrounds and first-generation college students). Currently, thirty percent of USD's 5,100 students are students of color; thus, the plan to recruit 18 underrepresented students is realistic.